Mathematical Sciences: Stochastic Control and Applications in Mathematical Economics

Research in stochastic analysis and control, with special emphasis on mathematical economics and on problems of singular control and optimal stopping. Particular topics include: (i) a detailed study of single-agent portfolio/consumption problems with very general market models and utility functions, using techniques from stochastic analysis; (ii) the associated treatment of equilibrium problems for an economy with several agents, whose joint optimal actions determine the prices of traded commodites by "clearing" the markets; (iii) a new approach to optimal stopping using the theory of balayage semimartingales, and the discussion of its ramifications for the reflection problem of Skorohod and for singular stochastic control; and (iv) a study of integral functionals for diffusion processes and semimartingales.